Quantitative Network Security Analysis

Proposal number: CCR-0311690

Title: Quantitative Network Security Analysis

PIs: David Moore, Geoffrey M. Voelker, Stefan Savage

The research investigates the following questions: how does the nature of
large-scale Internet security threats change over time, how effective
are attackers at compromising services, and how well do existing
security countermeasures provide a meaningful defense against these
threats in practice?

This requires the development of a combination of network analysis
techniques and network measurement infrastructure to analyze these
threats. In particular, this project has three specific goals. First,
our prototype measurement infrastructure will be re-engineered to
provide real-time analysis about current Internet-wide security
anomalies. This will allow for active measurements to characterize the
impact of attacks, the presence and effectiveness of security
countermeasures and patches, and to better correlate this data with
other sources of network measurement data. Second, tracking these
events on a long-term basis allows extraction of trends in the
prevalence, make-up, and staging of large-scale Internet attacks.
Creating this kind of longitudinal dataset is essential for
understanding the evolution of the threats and vulnerabilities being
exploited. Finally, while there has been initial validation of results
concerning large-scale homogenous attacks, it is an open question how
well these techniques can be used for also observing smaller or highly
skewed attack distributions. This research will evaluate the resolution
of techniques by comparing with smaller scale monitors and direct
measurements on individual networks. Together these efforts will
produce the first meaningful datasets about large-scale network attacks
on the Internet. It is hoped that this data will ultimately have impact
beyond the individual results of this research, and will change the way
network security decisions are made.